Open string topology and holomorphic curves

The Principal Investigator plans to study algebraic structures that arise
naturally from invariants of Legendrian submanifolds in contact manifolds
as well as arbitrary submanifolds in smooth manifolds.
More specifically, the invariants for a Legendrian submanifold come from
holomorphic curves in certain symplectic manifolds, while the invariants
for a smooth submanifold arise from open string topology which
is based on the intersection theory of the manifold's path space.
Both theories have algebraic structures guided by topological field theory.
Part of this project is to refine the
language of differential graded operad algebras to express the two
theories in the similar algebraic language.
There is a growing body of evidence that suggests a connection between the
string topology of a manifold and the holomorphic invariants for its lift in
the symplectic cotangent bundle or contact unit cotangent bundle.
The Principal Investigator plans to define and compute some of these
invariants, hopefully leading to a connection between the two theories
when the smooth submanifold is a knot in Euclidean 3-space.
The Principal Investigator also proposes several more computational
projects related to knots in 3-space and smooth surfaces in 4-space,
also defined using holomorphic curves.

Contact geometry makes many appearances in physics, from optics
to thermodynamics to classical mechanics.
For example, particles obeying the Least Action Principal from mechanics
translate into objects in contact geometry (or its closely related field,
symplectic geometry) known as holomorphic curves.
Studying these holomorphic curves have led to some powerful
and sometimes surprising discoveries about contact rigidity and contact
dynamics. Knot theory has applications in understanding large and small
aspects of the universe, as well as long DNA strands confined to small space.
A central question in knot theory is determining
the complexity of knots which in turn requires developing computable
non-trivial knot invariants.
Again holomorphic curves has recently provided a plethora of such useful
knot invariants.
The Principal Investigator plans to develop other knot invariants,
motivated by string theory, that should be connected to these invariants
based on holomorphic curves.